Solar Wind-Magnetosphere-Ionosphere Coupling Using Incoherent Scatter, Magnetometer, and Other Coordinated Data

The investigators will study the electrodynamic coupling between the solar wind, the Earth's magnetosphere, and the ionosphere. Initial focus will be on comparison of the magnetometer and incoherent scatter radar data for studying cusp/cleft dynamics behavior in response to variations in the solar wind and interplanetary magnetic field. Fundamental questions center around the identification of ionospheric signatures of phenomena which occur at the magnetopause and which relate to solar wind- magnetosphere interactions. Later studies will focus on the magnetometer and radar data comparison with satellite images. Finally, the investigators will undertake extensive modeling of ionospheric phenomena through the 3-D adaptive grid MHD model and empirical ionospheric electrodynamic model developed at the University of Michigan. The former model has the ability to resolve features over vastly different spatial scales making the ionospheric predictions meaningful and, therefore, appropriate for comparisons with measurements and numerical modeling of other iuonospheric electrodynamic parameters.